Postdoctoral Fellowship: MSPRF: Fast Randomized Eigensolvers: From Theory to Practice

This award is made as part of the FY 2024 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Ryan Schneider is “Fast Randomized Eigensolvers: From Theory to Practice”. The host institution for the fellowship is the University of California-Berkeley and the sponsoring scientist is James Demmel.